Dissertation Enhancement: Particle Astrophysics at the Super-Kamiokande Neutrino Observatory

9724751 Wilkes This award supports a 6 month National Science Foundation Dissertation Enhancement Award for Dr. R. J. Wilkes at the Super-Kamiokande Neutrino Observatory, Mozumi, Japan, operated by the Institute for Cosmic Ray Research (ICRR), Tokyo, Japan. Dr. Wilkes's student, Mr. Ross Doyle, will work with Professor Yoji Totsuka, Director of ICRR, on a research project entitled "Atmospheric Neutrino Observations with Super-Kamiokande". Evidence from experiments conducted over the last two decades consistently suggests there is a discrepancy between the number of electron neutrinos observed coming from the sun and the number that might be expected. Experiments such as Homestake, SAGE, Kamiokande II, and GALLEX have all reported fewer electron neutrinos than standard models predict. Because no solar models have yet been developed that are adequately able to both predict the observed level of neutrinos and yet account for all the other observed features of the sun, the possibility of neutrino oscillations has been invoked as an explanation for the measured deficit of one species. The proposed research is designed to determine whether these neutrino oscillations actually occur and, if so, measure the solar electron neutrino flux with greater accuracy than has been accomplished previously. ***